TC: Small: V2M2: Towards a Verified Virtual Machine Monitor

Virtualization is rapidly becoming a key technology for computing
systems, promising significant benefits in security, efficiency, and
dependability. Fully realizing these benefits depends upon the
reliability of virtual machine monitors (hypervisors). This research
aims toward developing a very high assurance, commercial quality
hypervisor by:

(1) designing practical tools and techniques to make reasoning about
hypervisors feasible;
(2) honing them through the formal verification of an existing simple
research hypervisor; and (3) applying them to develop and prove a graduated series of more and
more realistic hypervisor models, aiming toward a fully
functional, formally verified hypervisor.

The project proceeds along two tracks. In the first, an existing
research hypervisor is modeled and verified using the ACL2 formal
analysis tools. In the second track, tools and methodologies are
developed applicable to a wide variety of hypervisor implementations.
This work aims to advance the formal analysis of an important class of
software applications and to advance the state of the art in formal methods,
particularly management of large and complex formal proofs. This
research is a collaboration between the formal methods and systems
research groups at the University of Texas at Austin.